International Travel to 36th Congress of the International Astronautical Federation

This project provides travel support for a young researcher to attend and present a paper at a major international technical meeting.